Purchase of X-Ray Diffractometer

This proposal is for the acquisition of an X-Ray powder-diffractometer for the characterization of intermetallic compounds, thin film and superlattices. The diffractometer will be used in research related to high temperature and field superconductivity, the coexistence of superconductivity and magnetism, reentrant superconductivity, oscillatory magnetic states that co-exist with super conductivity magnetic field induced superconductivity, epitaxial growth, superlattices and ceramic thin films. In addition, this instrument will be operated as a facility to support a variety of other research efforts within the University.